Mathematical Sciences: Bergman Space Inequalities

Wilson DMS-9501107 Wilson will prove weighted norm inequalities that show how the interior smoothness of solutions of certain classes of partial differential equations are controlled by the size of their boundary data. This allows one to gauge the speed of convergence of numerical approximations to the exact solutions of the pde, and to determine how perturbations of boundary data effects the rate of convergence. Partial differential equations form a basis for mathematical modeling of the physical world. The role of mathematical analysis is not so much to create the equations as it is to provide qualitative and quantitative information about the solutions. This may include answers to questions about uniqueness, smoothness and growth. In addition, analysis often develops methods for approximation of solutions and estimates on the accuracy of these approximations.